SBIR Phase II: A Novel Resonant-Enhanced Crystallization (REC) Process

This Small Business Innovation Research (SBIR) Phase II project proposes to develop a novel Resonant-Enhanced Crystallization (REC) process for pharmaceutical and biotechnology industry applications. REC technology is expected to be superior to the conventional crystallization process that incorporate impeller stirring for crystallization, due to its enhanced mass and heat transfer, lower shear (or reduced crystal breakage), and improved crystal size distribution.

The commercial impact of the project would be on pharmaceutical and biotechnology industries. REC technology will make the crystallization process more attractive to pharmaceutical separation and purification operations.